International Research Fellow Award: Theoretical approaches to understanding the structure of ecological communities

0076200

The International Research Fellow Awards Program enables
U.S. scientists and engineers to conduct three to twenty-four
months of research abroad. The program's awards provide
opportunities for joint research, and the use of unique or
complementary facilities, expertise and experimental
conditions abroad.

This award will provide Dr. Christopher Klausmeier with support for 12 months to work
with Drs. Peter Bossard and Elena Litchman at EAWAG/ETH Limnological Research
Centre in Kastanienbaum, Switzerland, Dr. Tadeusz Kawecki at the University of Basel,
and Dr. Ulf Dieckmann at the International Institute for Applied Systems Analysis
(IIASA) in Vienna, Austria. The topic of his research is the theoretical approach to
understanding the structure of ecological communities.

The goal of this project is to develop flexible theoretical techniques which would allow
community structure to self-organize from a range of potentially interacting species.
These approaches have been pioneered by Dr. Dieckmann's group at IIASA for use in
evolutionary studies. With collaborators at EAWAG, Dr. Klausmeier will apply these
techniques to mechanistic models of a particular kind of ecological system: lake
plankton communities. He will determine how community structure depends on
environmental parameters such as nutrient loading, then test these predictions against
data from a range of lakes. He expects to develop new general mathematical techniques
for studying community assembly. By applying them to lake plankton communities, he
hopes to expand understanding of how the structure of these communities depends on
environmental parameters and how they will respond to human impacts.